Common Randomness, Multiuser Secrecy and Tree Packing

This research takes a multiuser information theoretic approach to investigate innate theoretical
connections that exist between multiuser source and channel coding, information theoretic
network security, and combinatorial tree packing algorithms in theoretical computer science. It is
of compelling interest to the theory as well as the engineering practice of network source and
channel coding, and network security, in emerging wireless technologies.
Addressing broad classes of network source and channel models with correlation and
cooperation, the investigators study explicit and precise characterizations of basic structural
connections between multiuser data compression, channel coding, network security and
combinatorial tree packing, and the underlying role of common randomness (i.e., coordinated
randomization). The research develops information theoretic principles for associated signal
processing algorithms. It applies source coding and channel coding techniques for providing
information theoretic network secrecy in encrypted communication, and investigates points of
contact between combinatorial tree packing algorithms and network security.